Collaborative Research: Sustained Resources: Advancing and Expanding the Volcanology Infrastructure for Computational Tools and Resources

Computer models are vital to understanding and forecasting volcanic eruptions and reducing their harm to lives and property. However, many volcano modeling tools are difficult to find, install, or run. This project expands the Volcanology Infrastructure for Computational Tools and Resources (VICTOR), a free online platform that makes trusted volcano modeling tools broadly accessible. It also provides hands-on training, courses, and teaching materials. These activities strengthen hazard preparedness and train the next generation of volcano scientists.

This project will advance VICTOR, a cloud-based platform built on open-source JupyterHub architecture that hosts more than two dozen models of volcanic processes. The project will streamline the ingestion and adaptation of community-contributed models using a structured evaluation rubric. It will develop integrative workflows for model benchmarking, inversion of observations, and uncertainty quantification. It will also add technical capabilities including high-performance computing support, user resource provisioning, and expanded communication channels. A comprehensive education program will deliver annual workshops and hackathons, quarterly training sessions, virtual courses, a webinar library, and college-level teaching modules.